Bolivarian Mathematics Workshop: Quito Ecuador, July 16-21, 1990

This Science in Developing Countries award will support a regional workshop in mathematics organized by Professor Joseph Kohn of Princeton University and mathematicians from the Centro de Matematica, Universidad Central del Ecuador under the direction of Professor Ronaldo Saenz Andrade. The workshop will involve up to five representatives from the different Bolivarian countries (Panama, Venezuela, Colombia, Ecuador, Peru, and Bolivia) plus Chile, with an emphasis on the selection of young and active mathematicians interested in increasing communication with the international mathematical community. In addition, there will be participation of a number of outstanding European mathematicians who will be supported by their own countries. The workshop will include the following activities: lectures, round table discussions, and a mini-course with ample opportunities for informal discussions. The teaching of mathematics and the promotion of research activities will be emphasized, taking into account the experiences of the attendees. The participation of a distinguished group of U.S. mathematicians, who are knowledgeable about the problems of doing research and teaching in Latin America, is likely to lead to improved communication and increased mathematical activity in the region.